Bilattice Based Logic Programming Languages

This research will investigate both in theory and practice the implementation of a family of logic programming languages that have been semantically characterized with the help of the algebraic notion of bilattice, via a uniform family of algorithms. These algorithms can be either tableaux or resolution based. The resulting languages will provide machinery for manipulating the 'information' content of statements, as well as their "truth" content.